Advanced Technology Environmental Education Center (ATEEC)

There is a rapidly growing need for advanced technology environmental education programs to prepare students for the workplace of today and tomorrow. To build a high performance environmental education infrastructure, the Hazardous Materials Training and Research Institute (HMTRI), the Partnership for Environmental Technology Education (PETE), and the University of Northern Iowa Center for Environmental and Energy Education is establishing a national Advanced Technology Environmental Education Center (ATEEC). The vision is to create a world class network of community college environmental programs linked with high schools that inform and prepare students for entry into these two-year programs. The Center has established three broad goals: (1) Develop nationally validated curriculum models and advanced instructional materials; (2) Establish comprehensive programs of professional development; and (3) Build a clearinghouse to serve as a national center of environmental information and as a hub for the networking of environmental educators, business and industry, federal agencies, and professional societies. The Center will provide leadership to: enhance core and advanced math science, and technology components of environmental education; utilize advanced electronic communications networks; focus upon meeting the needs of diverse learners; encourage instructional materials which utilize advanced technologies; and develop teaching and curriculum standards for environmental education. The ATEEC will touch hundreds of instructors and improve the education of thousands of students throughout the nation.